SGER: Sequence-specific Arrays for Expression and Functional Analyses of Developmental and Metabolic Regulatory Genes in Arabidopsis

Crawford / Yanofsky
9986925

The introduction of genomic technologies to elucidate gene function and regulation promises to unleash a flood of new information about plant development and metabolism. RNA profiling is one such technology, which allows molecular biologists to study gene expression on a genomic scale. By immobilizing thousands of DNA sequences onto a single chip or array, the PI can monitor mRNA levels for thousands of genes at a time. The goal of this proposal is to develop sequence-specific arrays of a select group of regulatory genes for expression analysis in the plant Arabidopsis thaliana. These arrays will be used to identify genes that regulate flower and fruit development and that control rapid metabolic responses to inorganic nutrients in plants.